Theory of Magnetic Metals

There are three thrusts to the work that will be performed: electronic structure calculations, dynamic magnetic susceptibilities, and exact solutions of some model Hamiltonians of many body theory as defined on a finite cluster. The structure calculations emphasize three and four dimensional transition metals with expanded lattices and/or different atomic arrangements from equilibrium. Some calculations have been completed, others are planned. The magnetic susceptibility studies attempt to provide models for the interpretation of inelastic neuron scatering experiments in the paramagnetic region. Studies of nickel have been completed, and calculations for iron will be made because there are excellent theoretical reason to expect significant differences. Finite clusters have become a theorist's laboratory for investigating exact solutions of many body problems. This work is new, interesting, and important. The complex case of the lattice Anderson model is under investigation. These techniques are being applied to the study of electron interactions in high temperature superconductors.